Space Weather: Architecture for Improving Space Weather Forecasting

This project will develop the computer architecture for the Community Coordinated Modeling Center (CCMC). The development of a computer architecture (or 'spine') that will facilitate the inter-communication of different Space Weather models is critical to the success of the CCMC. The approach that will be developed by this project involves a control program that will manage execution of the integrated system, a toolbox of common reusable software applications such as data visualization modules and coordinate transforms, an integrated set of standard system services and communication protocols, and a graphical user interface (GUI). The system will be designed to facilitate communications between the CCMC front end located at Goddard Space Flight Center and the cluster of IBM SP2 nodes that forms the computational basis of the CCMC